Network Information Services Manager(s) for NSFNET and the NREN

The Network Information Services Manager for Registration will provide registration services to the Internet community, register Internet entities such as autonomous system numbers and points of contact manage the assignment of Internet numbers for the entire world, register domain names, manage the root domain for the Internet and provide help desk services to advise Internet users on the policies and procedural issues involved in Internet registrations, and provide information on such topics as domain naming schemes and Internet address assignments, as well as on the status of pending registration requests. The project is one of three collaborative activities comprising the Network Information Services Management Project.